Doctoral Dissertation Research: Transformations in Resource Use: A Study of Human-Plant Relationships and Its Significance for Communities in Post-Soviet Kamchatka

ABSTRACT
ARC 0526040

The proposed dissertation research is on the ecology of non-timber forest products and their social and cultural significance to the people of rural Kamchatka, Russia. Using both qualitative and quantitative ethnographic methodologies the research will explore the use and integration of botanical and ecological knowledge by local people in post Soviet Russia.